The Glucose-Induced cAMP Signal in Fungal Spores and Its Relationship to Glycolysis

Dormancy and its relief in fungal spores constitute an attractive model system for the study of development and differentiation. The spores of many fungi are triggered to germinate by exogenous glucose. However, the early events in glucose-induced germination may be independent of glucose metabolism. Instead, glucose triggers a rise in intracellular cyclic AMP which in turn releases a regulatory cascade that activates the cell. Associated with this regulatory cascade is a dramatic surge in glycolytic activity. The objectives of the proposed research are to examine the mechanism by which the glucose-induced cyclic AMP signal is generated and to understand the relationship between the cyclic AMP signal and the increase in glycolytic flow. Specifically, the proposed research will test the hypotheses that (1) the cell's glucose transport system is the receptor for the cyclic AMP signal and (2) a rise in fructose 6-phosphate is responsible for the surge in glycolysis. Dormancy has survival value because it isolates the organism from a hostile environment. To be effective, however, dormancy must be accompanied by the ability to recognize environmental factors characteristic of favorable periods. Otherwise, dormancy would assure death of the organism without reproduction. These recognition systems, once activated usually provoke biochemical and physical changes that are rapid and dramatic. This project studies the early events once dormancy is broken.***//